Postdoctoral Research Fellowship in Biological Informatics for FY 1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of biophysics and is entitled "Computational and theoretical investigation of the protein folding mechanism and protein design: topological and energetic effects." The goal of this research is to explore how topological structural information governs the sequence designability of the native conformation, and how native topology along with energetic sequence information controls the
protein folding mechanism. It uses an analytical framework and detailed numerical simulations to give a full
understanding of the molecular mechanisms. This new approach will be helpful for further developments in structural prediction methods and design of novel proteins.